Engineering Research Equipment Grant: Development of the Boundary Element Method to Analyze the Storage of Gaseous Matter in Salt Domes

Salt domes are being used in both the United States and elsewhere for the storage of fluids other than water. Concerns exist about the rate at which stored gases diffuse through the salt and escape. Such gaseous movement can result in significant economic losses and can also pose dangers to the environment. Analyses used to predict the escape rates involve massive amount of computer time and have proved excessively expensive and time consuming for practical use. This grant is to provide the principal investigator with two mini- computers (workstations) which will be dedicated to research on diffusion rates of gases in solids, and will allow the principal investigators and his students to develop highly efficient and practical numerical schemes for analysis of these problems.